Boundary Layers in Superconductors and Liquid Crystals

Almog
DMS-0604467

The project covers both the Ginzburg-Landau model of
superconductivity and the Landau-De Gennes model of liquid
crystals. The investigator studies several fundamental
theoretical problems related to these models. In particular, he
examines:
1. The structure of boundary layers of superconducting or smectic
states that are both characterized by exponentially fast decaying
solutions. For the case of superconductors this phenomenon is
called surface superconductivity.
2. The emergence of periodic solutions, known as Abrikosov
lattices for superconductors and as twist grain boundaries for
smectic liquid crystals.
3. The loss of stability, in the presence of a combination of
electric and magnetic field, of the normal state in
superconductors.

Superconductors are metals that when put under a
sufficiently low temperature exhibit two important properties:
1. They lose entirely their electrical resistivity.
2. The magnetic field is excluded from the superconducting area.
Superconductors have enormous technological potential for
applications ranging from magnetic sensors, through generators of
large magnetic fields, to high power transmitters. Liquid
crystals contain elongated molecules whose direction and density
determine the material's mechanical, optical and other
properties. They are already at the heart of a large industry,
particularly in display devices, and they are being explored for
further application in a variety of optical devices. Liquid
crystals with uniform density are called nematics, and those with
non-uniform density are termed smectics. The investigator
studies the behavior of the above materials when the material is
either superconducting or smectic only in a thin layer near the
boundary. The project could shed light on the transition from
the normal state to the superconducting one, or from nematics to
smectics. It can also have some industrial applications because
it aims at finding the maximal current a superconductor can carry
before reverting to the normal state where the material
resistivity would cause energy losses.